ITR/SY (CCR): Implementing Modular Program Analysis via Intersection and Union Types

Proposal Number: ITR Proposal 0113193

Title: Implementing Modular Program Analysis via Intersection
and Union Types.

PI: Assaf J. Kfoury

The proposed research will investigate real-world relevance of a
new framework for modular program-analysis, which uses "intersection"
and "union" types. The starting point of this investigation is a
recently designed polymorphic type system, called System I, for a
foundational functional language, the lambda-calculus. The chief
feature of System I is the use of "intersection" types together
with the new technology of "expansion variables", which allow
System I to satisfy a substitution-based principal-typings property.
Although fully modular, the resulting program analysis is now
restricted to a foundational language (the lambda-calculus) missing
many standard high-level programming features such as conditionals,
recursive definitions, exceptions, assignments, input/output, etc.
Considerable work is necessary in order to turn System I into a
type system for a full-fledged programming language such as Scheme
(now considered to be the initial target language of proposed research).

The proposed research is largely engineering work, aimed at producing
an efficient prototype implementation, based on appropriate extensions
of System I. The implementation will be evaluated --- or re-designed
in parts --- by the extent to which it produces demonstrably better
results in handling large software systems (enforcing larger classes
of safety properties, statically detecting and ruling out larger classes
of run-time errors).